The NSF INCLUDES Open Forum: A Platform for Collective Impact and Knowledge to Advance Broadening Participation in STEM

The American Association for the Advancement of Science (AAAS) is creating, implementing and evaluating a forum for the NSF INCLUDES broadening participation community of practice and for engaging the NSF INCLUDES awardees and science, technology, engineering and mathematics (STEM) researchers across the nation to expand the NSF INCLUDES broadening participation network. The NSF INCLUDES program is a comprehensive national initiative designed to enhance U.S. leadership in STEM discoveries and innovations focused on NSF's commitment to diversity, inclusion, and broadening participation in these fields.

The NSF INCLUDES Open Forum will use the AAAS Trellis networking platform and the organization's experience engaging communities of practice focused on broadening participation, STEM education and STEM research. The project builds on the success of a prior NSF INCLUDES Conference award (HRD-1650509) that was addressing goals to define networking needs of the first round of NSF INCLUDES Design and Development Launch Pilots (DDLP); to develop design specifications for NSF INCLUDES networking, curating of resources, and supporting communities of practice; and to propose tools, techniques, capacities and functionalities for an NSF INCLUDES national network.

The NSF INCLUDES Open Forum project includes advisory board members with expertise in networking platforms and others with broadening participation knowledge and experience. A yearly conference for NSF INCLUDES awardees will offer participants an opportunity to learn about how Trellis platform upgrades, functionality and technology options (e.g., a smartphone application) can be used in new ways to engage a broader community of partners interested in broadening participation in STEM research and education contexts. An external evaluator will assess the activities and outcomes of the NSF INCLUDES Open Forum both during implementation and at project end. The PIs will also communicate the outcomes of the project to broader audiences, both academic and non-academic, and encourage a dialogue within the NSF INCLUDES community about the use of technology for organization and communication within a network.